Supercomputer Access Gateway to SURAnet/NSFnet at Mississippi State University

The Mississippi State University has several researchers who would benefit from access to supercomputers and access to other researchers connected to the NSFNET. The campus will be connected th SURANET, a mid-level network which attaches to the National Science Foundation Network, NSFNET, through medium speed (56,000 bits per second) communication lines. Consistent with the NSFNET Program policy regarding connection to existing mid-level networks, this grant is an award of $20,000 for routing equipment at the campus. The impact of the award, however, is that the SURANET management will be provided funding to obtain communication lines for this campus and it will thus have computer to computer communication capability with all institutions currently connected to the nation research network, NSFNET.